Adsorption and Entry of EBV

This is a Research Opportunities for Women Research Planning Grant, to enable Dr. Reisert to develop an independent approach to the question of how Epstein-Barr virus enters host cells.